Collaborative Research: Topological Fluid Mechanics of Stirring

Stremler
DMS-0607606
Boyland
DMS-0604570

The broad objectives of this work are to develop the theory
of topological chaos and to advance the application of this
theory to fluid stirring. The main focus is on fluid systems for
which a unique top-level periodic orbit of pseudo-Anosov type has
been "built in." This work is accomplished using an integrated
program of theoretical, numerical, and experimental research. In
particular, the investigators (1) advance the rigorous
mathematical theory underlying topological chaos; (2) use the
theory to develop an understanding of the fundamental mechanisms
of mixing in several canonical fluid flows of practical interest;
and (3) leverage these developments to advance current laminar
mixing technology. The mathematical/theoretical and
numerical/experimental components of this project are mutually
supporting. The theory provides ideas and a basic framework for
the design and analysis of fluid mixing, while the fluid
applications provide evidence for or against the posed
conjectures and suggest ideas for additional development of the
theory. The intellectual merit of this work includes its
extensions of the Thurston-Nielsen theory, its contributions to
the fundamental understanding of fluid stirring and the role of
topological methods in global predictions of chaos, and its
detailed analysis of fluid systems of interest for practical
mixing enhancement.

Laminar fluid flow systems are at the center of numerous
major advances in medical, biological, chemical, and material
processing applications that are important for improving human
health, advancing scientific discovery, and maintaining national
security. Fluid mixing is known to play a significant role in
these applications, and mixing enhancement is most often achieved
through efficient stirring. Further advances in laminar mixing
enhancement are limited in part by the tools used to model,
analyze, and predict efficient stirring in laminar flows. A
topological method based on a deep mathematical theory due to
Thurston and Nielsen has recently been applied to fluid stirring
enhancement by the investigators and others with quite dramatic
results. The mathematical theory, when properly applied,
provides a means to "design for chaos" predictively. The broader
impacts of this work include promoting teaching and learning at
the undergraduate and graduate levels, seeking to broaden the
participation of underrepresented groups in research, enhancing
interaction between the engineering and mathematics communities,
and benefiting society by developing the techniques for mixing
enhancement in laminar flow.